Learning Modules with Crash Safety for Introductory Physics

Physics (13)

Learning Modules with Crash Safety for Introductory Physics develops and tests learning modules that capitalize on Kettering University's unique Crash Safety Center. This industry standard facility embraces a broad educational mission, and seeks to expose students and the greater community to the design of vehicles for crash safety. Physics is central to that design: the mechanics content encountered in high school physics and in the first course in a typical university curriculum is critical to the work of the Crash Safety Center. This project combines topical content from crash safety with current pedagogy based in physics education research, to produce a set of 8 portable learning modules or units that can be broadly disseminated via the internet or other media for use in both high school and college/university classrooms.